Introduction to Molecular Biology: Continuing Education for Community College Science Faculty

This residential program is designed to introduce community college faculty to molecular biology and its applications. The program will draw upon the faculty and facilities of UC Davis, a leader in the field of experimental biology. Lectures, labs, and discussions will emphasize basic principles underlying recombinant DNA methodologies and issues. A unique aspect of this program are follow-up sessions held onsite at participating community college campuses during the academic year. Participants also have the opportunity to conduct research through an internship with a member faculty at the University of California, Davis. Summer 1993